Support for U.S. High Energy Physicists to Attend XXXIVth Rencontres de Moriond Conferences, Les Arcs, Savoie, France, March 13-27, 1999

9900418
Tan
Dr. Tan is seeking support for students and post-docs to attend the well know XXXIV Moriond Conference. In this Conference, most recent developments in the electroweak physics and unification
theories will be discussed. Funding will support students and post docs to attend this Conference. This Conference is well organized and has excellent speakers.